Collaborative Research: High Performance Multi-Scale Ocean Modelling

This project will develop and implement new algorithms for high performance, highly parallel computers to enhance the Spectral Element Ocean Model developed at Rutgers University. As a testbed for this algorithmic development, the code produced will be applied to multi-scale global oceanic simulations which will focus on the Northeast Pacific continental shelves, including the Western Coast of the United States and the Coastal Gulf of Alaska. These regions are at the center of an investigative program aimed at understanding how physical processes, with multiple temporal and spatial scales, influence marine ecosystems. The new algorithms developed will address the computational difficulties associates with the long and multi-scale global oceanic simulations. The research will focus on robust two-and three-dimensional elliptic iterative solvers, optimization of the code on cache-based processors, and scalable parallel performance on unstructured grids. In particular it will exploit a new treatment for fast eaves that avoids splitting the barotropic mode and, thus, eliminates the shallow water equations from the model.